Conference: The Seattle Snowmass Summer Study 2022

This is a conference proposal to help participants attend the Snowmass Community Study meetings 17-26 July in Seattle. The participants will be mainly from early career members and students.

The Snowmass Community Study is a field wide effort. Attendance at the final summer meeting
will be important for building consensus in the community. Each frontier will be discussing the major challenges it faces and its vision for the next decade. Early career members of the community have traditionally been underrepresented in the Snowmass conversation, despite being the most likely to be part of the community in the coming decades. The funds requested in this proposal will make it easier for younger members of the community to be a part of this conversation.
The Particle Physics Community Planning Exercise (a.k.a. “Snowmass”). Snowmass is a scientific study. It provides
an opportunity for the entire particle physics community to come together to identify and document a
scientific vision for the future of particle physics in the U.S. Snowmass will define the most important
questions for the field of particle physics and identify promising opportunities to address them.
The Snowmass Community Study has 10 frontiers addressing different aspects of the field. They
are: Energy Frontier, Neutrino Physics Frontier, Rare Processes and Precision Measurements Frontier,
Cosmic Frontier, Theory Frontier, Accelerator Frontier, Instrumentation Frontier, Computational
Frontier, Underground Facilities, Community Engagement, and the Snowmass Early Career Scientists.
At the summer study the frontiers will agree on their final, individual, reports. The frontiers conveners,
along with the US High Energy Physics community, will draft a final summary document that presents
the big questions facing the field and science of particle physics along with research paths forward.
The Snowmass Report will provide input to the High Energy Physics Advisory Panel. The Particle
Physics Project Prioritization Panel (P5), a sub-panel of HEPAP, will produce a strategic report for
the field later in 2022.

This award will help fund participation of underrepresented groups by selecting:
• Early Career members who do not have other funding for the conference.
• Applicants who are actively involved in the Snowmass process
• Applicants who are presenting at the conference (talk or poster)
• Members of underrepresented groups (women and underrepresented minorities)
This broader participation will help shape the future of High Energy Physics.